Source Radiation Analysis Based on Spatial Transformation ofAcoustic Fields

This project deals with the topic of predicting the sound radiation from the surface of a vibrating body. Much effort has been devoted to modeling and analyzing such idealized sources as spheroids, cylinders, and plane rigid bodies in baffles. Current attention focuses on a variety of numerical methods to solve more general radiation problems. Most researchers have reconstructed the sound field by using a pressure measuring method. A velocity measuring technique is proposed which may have advantages over the pressure method for certain applications. The objective of this research is the development of this method.